Non-Intrusive Diagnostics to Study Soot Formation

One of the most important processes in combustion is the formation and destruction of soot. The concentration of soot controls the energy radiated by the flame and hence the flame temperature. The effectiveness of soot destruction convrols the combustion efficiency and the environmental acceptability of the combustion device. To provide an instrument for soot research, development, and eventually for process monitoring, this proposed project would develop a low cost (under $50,000), portable, versatile, non-intrusive flame diagnostic instrument having the following capabilities: 1) Measurement of spatially resolved mean value of both concentration and temperature of gas species and soot by tomographic reconstruction of line-of-sight Fourier Transform Infrared (FT-IR) emission and transmission (E/T) spectrographic data. 2) Measurements of spatially resolved data on the time variations of species concentration and temperature. The objective of Phase I is to develop and validate the method of FT-IR E/T tomography for flames being studied at the National Institute of Science and Technology (NIST) and General Motors for which data from other techniques are available. These data would be used to help determine the mechanism for the formation and destruction of soot. In Phase II, fiber optics and multi-plexing would be developed for obtaining multiple lines-of-sight simultaneously and the FT-IR turbulence measurements would be developed to allow spatially resolved data to be obtained. Software and hardware would be developed for on-line, in-situ diagnostic instrumentation. The successful completion of this program will result in a powerful, rugged instrument for in-situ diagnostics capable of measuring important properties of multi-phase reacting mefia either in research and development, in manufacturing or as a process monitor. Applications include measurements in industrial gas turbines, industrial and residential furnaces, utility boilers, process heaters, jet engines and diesel engines.